Dynamics of Electrons and Magnetic Fluxoids in High- Temperature Superconductors

9318740 Ginsberg Technical abstract: A praseodymium-doped high temperature superconductor (yttrium-barium copper-oxide) will be investigated above and below the superconducting transition temperature. Measurements will include the electrical resistance, Hall effect, critical current density, and magnetic irreversibility line. The focus will be on untwinned single crystals to avoid the effects of twin boundaries and thus allow measurement of the anisotropy of the electrical and magnetic properties. Such measurements would not be possible in polycrystalline samples or in twinned single crystals. The information gained will cast light on inter-layer coupling and magnetic pair breaking in high temperature superconductors. Non-technical abstract: A fundamental theory of high temperature superconductors would cast light on the behavior of the electrons in these fascinating materials. Furthermore, it would facilitate the efficient development of devices, such as high-speed circuits and sensitive detectors of magnetic fields or electrical voltages. To provide data for the development of the theory, we will measure the electrical and magnetic properties of untwinned single crystals of an important high temperature superconductor (yttrium-barium- copper-oxide) to see the effects of replacing nonmagnetic (yttrium) atoms with magnetic (praseodymium) atoms. ***